Parallel Programming Tools and Linear Systems Solver for CFD Applications

This award is for a postdoctoral associate in Experimental Science. The associate, Xiaoge Wang, will be working on tools for parallelizing CFD codes.